Monetary Search Theory, International Currencies and Strategic Considerations about Monetary Integration

Alberto J. Trejos Northwestern University SBR-9631712 This research will undertake three monetary search theory related projects. The first project will examine the purchasing power of money and the determination of exchange rates for countries whose currency circulates abroad. The second project will study the strategic interaction between a group of central banks, where each has to decide a monetary policy. The decisions of the central banks are linked by the common realm of circulation of their currencies. The third project will undertake exploratory research on a computable search model with divisible money.